S-STEM Scholars of Purdue: Program to Promote and Sustain Interest in Engineering Through Engaging in Experiential Learning

This S-STEM scholars program is designed to promote and sustain interest in engineering through engaging students in experiential learning opportunities. The project provides experiential learning opportunities and funding for 30 high-achieving students with financial need. Specific goals of the S-STEM Scholars program are to improve educational opportunities for students through experiential learning, increase retention and graduation of students, and increase the numbers of well educated and skilled employees in technical areas of national need. The program builds on the strengths of Purdue University's College of Engineering mentoring and tutoring programs of the Women in Engineering Program (WIEP) and Minority Engineering Program (MEP) as well as Purdue University's service learning, global programs, and undergraduate research efforts.